Data Collection for the International Social Survey Program

This research is the American part of an ongoing project in 22 countries to collect comparable survey data on key social issues and processes. In the present study, a national sample of adult respondents will be asked their feelings about issues related to natiolal identity and their views of the role of government. Data on national identity will identify some of the subnational and supranational pressures that threaten the viability of states and test hypotheses about factors leading to order and stability. Data on the role of government will provide continuity with earlier studies and will allow the tracking of changes in the attitudes of citizens toward government. %%% Participation in the International Social Survey Program represents an important part of the leadership role that the United States plays in international social science. This research ensures the continuing availability of high quality cross-national data otherwise inaccessible to individual researchers. The data also make an important contribution to teaching by providing graduate students with materials for theses and undergraduates with experience in analyzing data.